Development of Teacher Competence in Classroom Use of Scientific Data Sets

In an effort to increase both the use of technology and actual data in education, this project will utilize computers and CD- ROM technology to bring scientific data and curriculum material developed by NASA, NOAA, and USGS in the Joint Education Initiative (JEdI) Project into the classroom. The use of these materials will allow teachers and students to investigate their own questions relating to global and astronomical phenomena. Scientists that help develop the CD-ROM discs, university faculty, and industry personnel will serve as mentors assisting teachers on the access and use of government data and in its instructional application. Two hundred and twenty- five teachers from around the country will be trained during the three year project which runs from September 1, 1992 through August 31, 1995. Training will occur at the University of Maryland (College Park) and Western Washington University. Another 660 teachers will receive training from lead teachers, increasing the total number of teachers reached in the project to 885. There will be an approximate cost share of 27%.